Presidential Awards for Excellence in Science and Mathematical Teaching

Under this contract, the National Science Teachers Association, through its Special Projects Office, will carry out the program of Presidential Awards for Excellence in Science and Mathematics Teaching as directed by the Program Director for the program. In each state and in four other jurisdictions (District of Columbia, Puerto Rico, the Department of Defense Dependents Schools, and the territories of the Virgin Islands, Guam, Northern Mariana Islands, and American Samoa), a nomination and selection process will be carried out to identify six secondary and six elementary teachers, half of each group in mathematics and half in science, who epitomize outstanding teaching in those fields. These awardees will then be the nominees from which four teachers (two elementary, two secondary, two science, two mathematics) from each state or jurisdiction will be selected for the Presidential Awards for Excellence in Science and Mathematics. These Presidential Awardees, each with spouse or guest, will be brought to Washington for approximately one week of recognition ceremonies and professional activities. This contract provides for all arrangements for and expenses of the nomination, selection, and Washington activities to be handled by the contractor.